Identification and Characterization of the Sobevirus Coat Protein-Binding Site

The high resolution structures of several positive-sense RNA viruses, both rod-shaped and iscosahedral, have now been determined, and the molecular events in the assembly of rod- shaped RNA viruses have been characterized in great detail through the study of tobacco mosaic virus (TMV). By comparison, relatively little is known about the protein: RNA and protein: protein interactions which direct the assembly of the icosahedral RNA viruses. The experiments proposed here are designed to determine the RNA sequence and structure of the southern bean mosaic virus SBMV coat protein-binding site, and to characterize the rp-complex. The results will provide a detailed picture of the specific interaction between RNA and protein in the initiation event of icosahedral virus assembly, and they will also be relevant to the study of RNA: protein interactions in general. In addition, the proposed experiments will directly test the models for icosahedral virus assembly and will allow comparisons to be made between SBMV assembly and the assembly of another small RNA virus, turnip crinkle virus (TVC), with the PI has worked as a postdoctoral fellow. %%% Viral assembly is a key component in virus-host interactions. This project will contribute toward our understanding the host range and symptom severity of this group of plant virus and the economically important plant disease they cause. //